Acquisition of Polymer Characterization Equipment

This award provides funding for laboratory equipment to be used in the characterization of polymers, especially block copolymers. Included are a x-ray tube, gel-permeation chromatography columns, and a computer.